Research in Lorentzian Geometry and Mathematical Relativity

Abstract

Proposal: DMS-9803566
Principal Investigator: Gregory Galloway

Research under this award will be conducted in the fields of
Lorentzian geometry and mathematical relativity. One of the central
aims of the proposed research is to develop new techniques for
studying spacetime rigidity phenomena. The proposed research seeks to
establish maximum principles for null hypersurfaces and use these to
obtain splitting theorems/rigidity results for spacetimes which
contain null lines. Problems in the theory of black holes are also to
be investigated. These new techniques for studying null hypersurfaces
will make amenable the problem of rigorously establishing under
natural regularity assumptions Hawking's black hole area theorem. The
investigator will also continue research on topological censorship and
its relationship to the topology of black holes, focusing on the
connection between asymptotic structure and black hole topology.

In more general terms, this research project is concerned with
achieving a better understanding of the structure of the spacetime
universe at both the cosmological scale and the scale of collapsing
stars. The aim of spacetime geometry, as to be utilized and developed
in this project, is to study the relationship between three
fundamental aspects of the spacetime universe: curvature (which by the
Einstein equations is generated by the presence of matter), topology
(i.e., the global shape of spacetime) and causal structure (i.e., the
behavior of light cones). This research has applications to general
relativity and gravitation theory.